Collaborative Research: CAS-AES: An Integrated Framework for Compile-Time/Run-time Support for Multi-scale Applications on High-end Systems

The goal in this project is the development of new compile/runtime techniques that can enable efficient locality enhanced parallel execution of programs that are conveniently expressed in a high-level programming model. The project will develop performance-model driven approaches to efficient execution of complex applications with multi-level parallelism, with convenient abstractions for developing out-of-core applications, and will investigate applications in a number of scientific domains, focusing on requirements for and challenges in realizing high performance with a global shared view of data. In addition the project will develop compile/runtime techniques to support efficient execution of global-shared-view parallel programs that operate on non-array data structures. The tools and technologies to be developed in this project will target demonstrated needs in various areas of scientific computing. The software products arising from this work will be made freely available for use and extension by others.